Moduli of Vector Bundles on Riemann Surfaces and Applications to Topology

Abstract

Proposal: DMS-9803606
Principal Investigator: Georgios Daskalopoulos

The principal investigator's main topic of interest is the application
of analytic methods to topological and geometric problems. More
precisely, in the first part of the proposal the principal
investigator, motivated by the existence of representations of
fundamental groups of knot complements, suggests a connection between
Yang-Mills theory on Riemann surfaces and Teichmueller theory. In the
second part, the principal investigator proposes to study certain
compactifications of character varieties of fundamental groups of
surfaces and three dimensional manifolds. The investigator relates
this to actions of groups on trees and incompressible surfaces on
three dimensional manifolds. In the rest of the proposal, the
principal investigator suggests certain questions about the metric of
the monopole moduli space which appear in physics.

The main motivation of this work is to understand questions about the
topology of three dimensional manifolds by studying representations of
their fundamental groups. The results in this project will advance our
knowledge in questions relating gauge theory on Riemann surfaces,
harmonic maps, Teichmueller theory and three dimensional manifold
topology. In addition, work in this subject will facilitate further
connections between certain aspects of mathematics and physics.